Neutrons and Interactions of Medium-Energy Particles and Nuclei with Nuclei (Physics)

This is a proposal by the Medium-Energy Nuclear Physics Group at Kent State University (KSU) to study Gamow-Teller strength, stretched-state excitations, analyzing powers, and polarization-transfer observables in (p,n) reactions supplemented by (n,p) reactions; to probe the nuclear equation-of-state (EOS) by measuring triple-differential cross sections for neutrons from high-multiplicity collisions of equal-mass nuclei as a function of mass number and bombarding energy, where the azimuthal angle of the reaction plane is determined by measuring the transverse velocities of charged fragments emitted in a collision; and to probe nucleon and nuclear structure via electron-induced reactions. KSU is committed to an experiment to determine the electric form factor of the neutron by using the KSU polarimeter to measure the polarization of the recoil neutron after quasielastic scattering of a longitudinally-polarized electron from an unpolarized neutron in deuterium. Also KSU has submitted letters of intent to CEBAF for experiments on the charge form factor of the neutron, the photoproduction and electroproduction of rho mesons, neutron knockout in the quasielastic (e,e'n) coincidence reaction, and two-nucleon knockout (e,e'2N) reactions. The group is continuing to develop improved instrumentation for the detection of neutrons. Current projects include improved neutron polarimeters and higher efficiency neutron detectors.